"Windows on the Wild" Biodiversity Traveling Exhibitions and Education Project

National Science Foundation Informal Science Education Program Abstract PROPOSAL #97-25790 INSTITUTION: World WildLife Fund PI: Judy Braus PROJECT: Windows on the Wild - Exploring Biodiversity The World Wildlife Fund will develop Windows on the Wild - Exploring Biodiversity. The components of this project include two editions of a 2000 sq. ft. traveling exhibit, mini-exhibition kits designed to reach small and medium-sized institutions, and complementary educational materials designed to reach the general public and families including traditionally underserved audiences, students, and educators. With this project WWF intends to raise awareness and interest in biodiversity - its importance and its decline; raise awareness of the nature and role of scientific research in investigating and protecting biodiversity; raise awareness of, interest in, and understanding of the impacts of personal choices on biodiversity; and motivate and empower individuals to get involved in biodiversity issues. The exhibits will include a centerpiece theater introduction surrounded by five sections presenting activities and information related to the themes: What is Biodiversity? How Do We Find Out? Why is it Important? Why Is It at Risk? and How Can We Get Involved? Ancillary materials form the general public will include A Family Biodiversity Discovery Notebook, a take-home booklet, a brochure format for host institutions to use highlighting local events, among others. Complementary materials linking the exhibit to formal education activities include Educator's Info, and Windows on the Wild Biodiversity Educational Materials, as well as information about workshop and institutes.